Massively Parallel Algorithms for Financial Modeling Under Uncertainty

This project deals with the design, analysis and implementation of massively parallel algorithms for a broad class of stochastic programming problems. The developed algorithms will be used to solve models that arise in mortgage-based financing in the banking industry, asset/liability management for insurance and pension fund companies, hydroelectric power scheduling and transportation planning. The Union Bank of Switzerland is cosponsoring the project.